Seismic and Geodynamic Investigation of the Interaction Between the Oceanic Lithosphere and Upper Mantle

This is a collaborative proposal between seismologists and
geodynamicists to address three major questions. (1) What is the
temperature structure of the Pacific lithosphere and upper mantle?
(2) What are the dynamical causes of some of
the more prominent temperature variations? In particular, are the
dynamics controlled largely by near-surface physical processes (e.g.,
thermal boundary layer instabilities or TBI), by processes whose
genesis lies deeper within the earth (hot-spot plumes, large-scale
upwellings), or by interactions between deep-seated and shallow
processes (e.g., plumes exciting thermal boundary instabilities)? (3)
What complementaryinformation is available in radial and azimuthal
anisotropy? These questions are motivated, in part, by a preliminary
model of the thermal structure of the Pacific that reveals that the
Pacific lithosphere has experienced a punctuated cooling history,
cooling diffusively for its first 70 Ma and then reheating in the
Central Pacific between ages of 70 and 100 Ma predominantly at depths
between 70 and 150 km. New geodynamical simulations show that TBI
forms naturally as the plate cools and may play an important role in
the observed cooling history of the Pacific plate.

The seismological research will continue to develop data sets and
theoretical methods to improve the seismic and temperature
models of the oceanic upper mantle. The geodynamic research will aim
to understanding the dynamic interplay between the oceanic
lithosphere and upper mantle. Particular emphasis will be placed on
how the two-stage cooling inferred for the Pacific lithosphere may
occur, what controls it, and why it may not occur beneath other
oceans. Particular interest is in how TBI initiate and evolve, how
plumes erode and reheat the lithosphere and on what controls the
efficiency of this process, and the interrelation between TBI and
thermal plumes.

A graduate student and undergraduate researchers will work at the
interface between geodynamical and seismological modeling. In
addition, the research will provide a synoptic view of the oceanic
upper mantle that will be valuable for a number of new and on-going
initiatives such as Margins, Ridge2000, and Ocean Mantle Dynamics
(OMD).